A Petrologic and Geochemical Study of Fluid Flow, Diagenesisand Deformation in the Frontal Region of the Cascadia Accretionary Wedge

Understanding the role of circulating fluids in controlling sedimentary properties along convergent margins has become a high priority research objective in the marine geosciences. In a number of areas the discharging fluid can be sampled directly and inferences made about the depth of circulation, interaction with surrounding sediments, and degree of modification of sedimentary physical parameters. Sampling of sea-floor sediments and subsequent analysis can allow the history of circulation systems to be examined. This award will support an examination of the petrography and geochemistry of carbonate sediments that have been deposited by circulating fluids along the Oregon margin. Samples will be recovered by submersible in September of 1990. Samples will be analyzed for their major element chemistry and isotope composition.